Heterogeneity and Aggregate Dynamics

This project starts from the premise that microeconomic units do not adjust continuously to the information and shocks they perceive, and that when they do adjust their actions typically involve relatively large changes. Recent literature has developed both the microeconomic justification for such behavior and the implications of such an environment for aggregate dynamics. This project is mostly a continuation of the latter. The project has two parts. The first provides methods for the empirical implementation of models of aggregate dynamics under heterogeneous and discontinuous microeconomic adjustment, and develops several applications. On the methodological side, its purpose is to show (i) how to recover from aggregate data different forms of microeconomic adjustment policies, (ii) the implications of such policies for aggregate dynamics, (iii) the empirical relevance of these, and (iv) how to integrate microeconomic and aggregate data to improve the descriptive and predictive power of aggregate dynamic models. These techniques will be used to study dynamic labor demands, price and wage dynamics, and business as well as residential investment. The second part of the project is more specific and is aimed at studying the dynamic and medium run implications of the presence of costs of creating new production units in a growing economy. The interaction between adjustment costs and growth yields a productive structure where heterogeneous units operate simultaneously, with continuous entry of new and efficient units and scrapping of old and outdated ones. The purpose of this part of the project is to describe and study the efficiency of dynamic unemployment and wage determination under this "cleansing" view of both trends and cycles. This apparatus will be used to study U.S. and European business cycles, as well as the impact and optimal policy design in the face of structural reforms.